Travel: Supporting US participants for the 1st Taiwan-US workshop on Cyber Security

The proposal seeks support to cover the travel expense for invited participants from US institutes to participate a research workshop in Taipei, on June 26-27 of 2024. The requested travel support enables important technology exchanges among research stakeholders. The workshop enables in-person exchanges and helps facilitate the creation of research collaboration in cyber security research. It allows participants to enrich their international collaboration experiences and build joint research plans that are mutually beneficial.

The planned workshop will explore the research and collaboration opportunities in the research topic areas of Trustworthy AI, AI for Security, Resilient Networks, Zero Trust system, Post quantum security, and possibly others. The workshop will hold lightening talks and round table discussions in three thrust areas: AI and Security, System and Network Security, and cryptography and applications. The workshop will offer a unique experience for cyber security researchers to engage with each other under a two-day extensive program that allow for research ideas sharing, emerging topic discussion, and research roadmap definition.